Physical Science Workshop for Teachers of Grades 7-9

This project funds a six-week summer Physical Science Workshop for teachers of grades 7-9. The workshop will be an opportunity for 24 teachers from an 11-county area of Central Iowa to participate in an in- depth program to update their skills. The workshop will do the following: (a) update knowledge of participants in physical science, (b) advance skills in physical science instruction and experimentation, (c) prepare diverse curriculum materials that cover a complete physical science course and (d) make equipment for schools which have a minimal quantity of laboratory materials. During the academic year, the participants will meet for post-sessions with the workshop staff, principals of participating schools, and science consultants to discuss progress and problems in implementing the workshop concepts and materials. The workshop staff will visit each teacher's local school to assist in implementing new materials.